Supramolecular Architecture and Function of Photosynthetic Units in Chloroplasts

The formation of the photosynthetic unit is being monitored in chloroplasts developing under controlled conditions. The assembly and organization of four distinct Chl a and Chl b- containing polypeptides in the light-harvesting complex of PSII are being studied by quantitation of photosystem complexes, measurement of the Chl antenna size and composition in situ, correlation with polypeptide subunit composition, and immunoblot analysis. In addition, the origin, physiological significance and function of three novel low molecular-weight proteins (12-19 kDa region) are being studied. These are abundant in the thylakoid membrane during the assembly/development of the PSU but are largely absent from the mature chloroplast. Experiments are designed for the isolation of the three novel proteins and for the formation of antibodies against the respective polypeptides. Subsequent research will investigate the immunological cross- reactivity, chemical cross-linking and localization of these proteins in the thylakoid membrane. Solar energy, the ultimate source of all biological energy on this planet, is converted to chemical form through absorption of light by chlorophyll in the photosynthetic unit of green plants. This research is elucidating the architecture and function of this unit in green plant chloroplasts and is providing information on the assembly/organization of the photosynthetic unit. It will lead to an understanding of light utilization in a biological energy conversion process.